U.S.-Germany Cooperative Research: Theoretical and Experimental Study of Linear and Nonlinear Confinement of Spin Waves

0128823
Slavin
This award supports Andei Slavin and students from Oakland University in a collaboration with Burkard Hillebrands of the Physics Department at the University of Kaiserslautern, Germany. The project is supplementary to the ongoing award from the Division of Materials research on the "Dynamics of Linear and Nonlinear Spin Waves in Magnetic Films." The aim of the international project is to develop a complementary research collaboration between the theoretical research group in the US and the German experimental group to work on solutions to problems involving confinement of linear and non-linear spin waves in magnetic films and particles. Such solutions will have important applications in magnetic recording, and will advance the state of our fundamental understanding of magnetic excitations. The work plan provides for extensive participation by graduate students in the international travel and research.